SciTech/Chicago Internships on Museum Presentations of Science

This award, under the MPS Internships in Public Science Education Program, will support a collaboration between the University of Chicago and SciTech Hands-On-Museum to present science research and basic science to a broad public. The project will involve students and faculty from the University of Chicago and scientific and technical staff at SciTech Hands-On-Museum (Aurora, IL). Graduate students from several disciplines will be trained in and participate in the presentation of scientific knowledge, especially the conceptual design of museum exhibits. They will develop and implement projects and exhibits for SciTech. Ideas for projects will come from research work being performed at Chicago. Programs at Chicago that will help the students with projects include the Materials Research Science and Engineering Center, the Center for Cosmological Physics, the High Energy Physics group and the Computation Institute. Information about the exhibits and evaluation results will be disseminated via a web page, presentations to an advisory committee and through national and international conferences.

This award is funded by the MPS Office of Multidisciplinary Activities